Nonperturbative Quantum Gravity

Research in theoretical gravitational physics will focus on the problem of quantum gravity. Combining quantum mechanics and general relativity is one of the fundamental open problems in theoretical physics. Its solution will lead us to understand the quantum properties of spacetime and thus to modify in depth the basis of our understanding of the physical world. One of the most promising candidate theories of quantum gravity is loop quantum gravity. This theory will be developed and analyzed, to test its validity and explore its physical consequences.